A Young Scholar Program in Materials Science and Engineering

Stevens Institute of Technology will conduct a program in materials science and engineering for sixteen eleventh grade students. Activities will include: (1) a self-paced correspondence course on aspects of materials which would precede the summer research experience, (2) a five-week research experience at local industrial research laboratories or at states.